Conference: US-UK Workshop on Developing a Roadmap for Collaborative AI R&D

The objective of this award is to support the logistics portion of a virtual workshop that will bring together researchers from the United States and the United Kingdom in the field of artificial Intelligence (AI). The goal of the workshop is to identify priorities for collaborative research in AI, develop an agenda to develop new research areas, build upon existing collaborations and establish practices for continuous engagement around sharing of new research and development breakthroughs.

The workshop will take place virtually over two days in May 2022. The workshop will bring together about 20 researchers from the United States and about 20 researchers from the United Kingdom. Each session in the workshop will include presentations from the researchers, as well as roundtable discussions to identify key areas of research and set the framework for a collaborative agenda in AI.